Simulation of Bypass Transition in Pressure Gradients by Parallel Computation

Abstract
CTS-0081069
Paul Durbin, Stanford University

By-pass transition, in which a laminar boundary layer becomes turbulent, without passing through the stages associated with a very low disturbance free stream, is a manifestation of subtle and technologically important physical phenomena. The PI will use sophisticated numerical simulations to execute numerical experiments that will clarify the roles of the competing physical effects in by-pass transition. It is expected that this work will have rather far reaching consequences for aerodynamics and turbomachinary.